RUI: Intermediate Energy Nuclear Physics with Light Nuclei

9412436 Hadjimichael We plan to continue investigations in electroweak physics and hadron structure, and in the framework of lepton interactions with light nuclei. One facet centers on the interpretability of high accuracy experimental measurements which are now feasible, or will soon be so, at several laboratories: CEBAF, MIT/Bates, Mainz, TRIUMF, NIKHEF, and elsewhere: The second facet concentrates on electro and photo-reactions in the A+3,4 systems, with special emphasis on kinematical areas where correlated NN pairs in the initial state in nuclei can provide information on the nature of shell NN systems. ***